Fourier Transform Infrared Spectroscopy in the UndergraduateLaboratory

A Fourier Transform Infrared Spectrometer is being purchased for use by the undergraduate students as a part of their educational program. This instrumental technique is widely used in both industrial and educational applications. The Fourier transform technique with its computer interface provides a method for analyzing a wider range of samples with a greater sensitivity than is possible with ordinary infrared instruments. Prior to the purchase of this instrument, the students could not become proficient in this technique. The teaching/research sensitive instrument that is being acquired is enhancing the laboratory experience of the students. The grantee is matching the award from non-Federal sources.